Supercomputer Workload Characterization

The work will provide a workload characterization based on categorization of major job classes, rates at which the job mix parameters change, composition of queues as a function of job size and CPU limits, and a correlation between resource demands and application algorithms. The goals are to minimize the wall clock expansion factor through optimal queue control, minimize idle time by keeping the appropriate job mix in real memory, and process large resource demanding jobs in the general mix, without penalizing all processes, including the largest ones.